REU Site: University of Alabama Undergraduate Computer Science Research Program

This award is to support a Research Experience for Undergraduate Site. The participants will be students from the South at primarily undergraduate schools. The students will participate in research projects at the University of Alabama. The research projects cover a spectrum of computer science activities including object based modeling, scheduling algorithms, graphical user interfaces, parallel algorithm simulation, fourth generation programming languages, data base research, neural nets, and testing of Ada program components.